Science, Technology and Research Summers (S*T*A*R*S) NSF Young Scholars Program

9452725 Pangborn The Pennsylvania State University seeks to initiate a three-week, summer residential, Young Scholars Project in inter-disciplinary science for 48 students entering grades 11 and 12. Students will be involved in laboratory research and research methodology in cross- discipline approach with engineering, emphasizing team-building and team communications. The objective of the program is to create a high quality research opportunity for high school students who have expressed interest in studying science or engineering at the post- secondary level and to expose them to the culture of the university's research community.